Spectroscopic and Chromatographic Investigations of Derivatized Cyclodextrins

Dr. Stalcup will prepare and characterize regiospecifically derivatized B-cyclodextrins to serve as models for the derivatized cyclodextrins immobilized as chiral selectors in normal phase high performance liquid chromatography. She will use NMR and circular dichroism to probe substitution patterns on the cyclodextrin as well as to investigate the possibility of chiral discrimination in the derivatization of the cyclodextrin with a chiral derivatizing agent. In addition, NMR will be used to study the association complexes formed between the derivatized cyclodextrin and chiral analytes. In related work, Dr. Stalcup will explore alternative applica- tions of derivatized beta-cyclodextrins to chiral separations including their use as chiral mobile phase additives and as enantioselective precipitation agents. Derivatized alpha- and gamma-cyclodextrin bonded phases analogous to previously reported derivatized beta-cyclodextrin phases will be prepared, evaluated chromatographically and compared with the derivatized beta-cyclodextrin phases. %%% Research Planning Grants enable women who have not had prior independent Federal research support to develop a competitive research project. This project involves the preparation and characterization of new materials for use in the separation, by high performance liquid chromatography, of molecules which consist of the same atoms linked in the same way, but which differ in their three-dimensional structures. This research is of great importance to the chemical industry.